Conference: Workshop on Spectrum Data Science 2026

This project organizes a Workshop on Spectrum Data Science in 2026 held at the Virginia Tech Innovation Campus at Potomac Yards in Alexandria, Virginia. The workshop brings experts from academia, industry, and government together to discuss new research, needs, techniques, and directions for data collection and sharing for use for developing novel techniques to optimize the use of the electromagnetic spectrum for communications, active sensing, passive sensing, positioning, navigation, timing, and other scientific and commercial uses.

The workshop aims to inform planning for and early investments towards the federated spectrum data ecosystem that was discussed in the 2024 National Spectrum R&D Plan. Such an ecosystem and the data it produces can give the United States a strategic advantage in its own spectrum use, protect and enhance scientific uses of the electromagnetic spectrum, and create new businesses, jobs, and opportunities in the STEM fields through the collection, processing, and dissemination of spectrum data.